RUI: Request for Magnetometer for Ongoing Paleointensity Research

This award will provide one-half the funds needed to acquire a spinner magnetometer to be installed and operated in the Department of Geology at Occidental College. The College is committed to providing the remaining funds necessary for this acquisition. The instrument will be used primarily by the Principal Investigator and his undergraduate students who are actively engaged in research on the variation of the intensity of the Earth's magnetic field during magnetic polarity reversals in the past as recorded in rock magnetism.